Workshop on Cyberinfrastructure and Science Education, April 18-20, 2004

This award supports a workshop to provide a forum for representatives
from a full range of geoscience education levels and arenas to
explore the relationship between cyberinfrastructure andf geoscience
education. The workshop will explore the social, cultural,
workforce, and educational influences and opportunities offered by
the cyberinfrastructure intiaitive. It will be a critical and
complementary component of the ongoing cyberinfrastructure
discussions throughout the broad research community.